Cloning and Partial Characterization of the BLM5 and BLM8 Genes of Saccheromyces cerevisiae

A long-term goal of this project is to understand DNA repair pathways, recovery processes and enzymes important in the complex cellular responses to radiomimetic damage. this proposal focuses upon the molecular cloning and characterizations of mutants (blm) isolated in this laboratory on the basis of their hypersensitivities to killing by ionizing radiation and a radiomimetic family of chemical congeners. Studies are designed to improve our understanding of radiomimetic damage to eucaryotic cells, how cells respond to and reverse the damage, and multiple mechanisms for processing chromosomal injury. Objectives include determining 1) the BLM1, BLM3, BLM5, and BLM8 nuclear genes, gene products and functions, 2) additional genetic and functional relationships among blm genes and relationships of blm genes to specific rad mutations, 3) genetic mapping of the mutations, 4) the role of BLM nuclear genes involved in maintaining normal chromosomal structure and function after radiomimetic damage, and 5) the relationship of chromatic lesions and their repair to cellular survival and recovery. Genetic characterizations, molecular cloning and sequence analyses, DNA repair techniques, electrophoretic and sedimentation analyses, and enzyme assays will be utilized. The genetic sophistication, molecular flexibility and availability of mutant strains of eucaryotic Saccharomyces cerevisiae permit these studies and technical approaches.